NSF Young Investigator

9457978 Al-Qadi The proposed research includes developing: two focused antennae, an algorithm to identify internal deterioration, a method to predict structural deterioration and field validation. The teaching proposal includes development of: an undergraduate course on infrastructure assessment; a graduate infrastructure management course; an undergraduate nondestructive laboratory; a multidisciplinary course for infrastructure engineers and defense personnel, and introduce multi-media in the civil engineering materials course. ***